Weighted theory and compactness problems in analysis

Harmonic analysis is a fundamental area of mathematics that plays a crucial role in many STEM fields, including signal processing, quantum physics, data analysis, fluid mechanics, and bioimaging. The main idea of harmonic analysis is to study an object by breaking it down into simpler, more manageable parts – this is an essential technique for both the applied sciences and pure mathematics. This project aims to connect these disciplines by exploring and solving previously unexplored questions at the intersection of harmonic analysis, complex variables, operator theory, and partial differential equations. Alongside the technical goals, this project also promotes education and the field of analysis broadly through various initiatives such as organizing conferences and seminars, mentoring graduate and undergraduate researchers, and engaging in community outreach.

The main themes of this project include understanding sharp weighted norm inequalities and conditions for the compactness of central operators in harmonic analysis, analytic function theory, and partial differential equations. The investigator aims to establish sharp weighted weak-type bounds for commutators of Calderón-Zygmund operators with multiplication operators, prove sharp endpoint weak-type estimates for the Bergman projection and multilinear Calderón-Zygmund operators, connect the strong and weak bounds by examining behavior between weighted Lorentz spaces, address the weighted bounds for parameterized families of operators using a more general modification of the Muckenhoupt condition, develop the theory of compact multi-parameter singular integrals, study the compactness of the double layer potential through a general framework on metric spaces, and characterize the compactness of pseudodifferential operators with symbols in Hörmander classes. Techniques include new methods for weak-type 2 of 4 bounds of singular operators in multilinear, limited-range, and square function settings; sparse domination and extrapolation techniques; and strategies for addressing the compactness of singular integral, pseudodifferential, and Toeplitz operators.